Immigration Economic Restructuring and Internal Migration among U.S. Metropolitan Labor Markets, 1965-1990

9310647 Barff Little is known about how flows of immigrants to a particular destination affect the decision to leave or the destination choice of native migrants. That is, are flows of immigrants into the United States linked to internal flows of population, and does this activity form part of a broader system of interregional labor exchange? If so, then the hypothesis that population movements within a country are unaffected by immigrant streams must be reassessed. Additionally, previous research measuring the effect of immigration on the welfare of natives in impacted labor markets also requires reevaluation. Failure to recognize important linkages between immigration and internal migration of natives may result in serious underestimation of the effects of immigration on the welfare of natives since many immigration impacts be dissipated within the migration system. This project will measure the stability of the native migratory response to immigration over time by developing a series of migration models for the United States between 1965 and 1990. The models will test the linkage between immigrant flows and internal migration streams by occupation for all metropolitan areas. The 21 largest metropolitan areas will be examined in detail in order to illuminate the contextual subtleties of immigrant and migrant impact on each city's employment structure through time. A series of econometric models of migration will be estimated using public use microdata samples from the U.S. Census of Population for the time period in question. In 1965, landmark legislation was passed which relaxed the upper limits on the volume of immigration to the U.S. Econometric research so far has uncovered no instance where an increase in the supply of immigrants significantly and adversely affected the earnings or employment opportunities of natives. This research project extends the analysis of immigrant impacts to the question of whether immigrants cause native workers to move to other locations and what affect this movement has on the employment situation of both groups. It involves finding out if the migration response to immigration is even across space, which will add important new knowledge about the spatial context of immigration into the United States. ***